Postdoctoral Research Fellowship in Biological Informatics for FY-2000

This action funds an NSF Postdoctoral Research Fellowship in Biological Informatics for 2000.

The research and training plan is in the areas of Systematic Biology and Animal Behavior and is entitled "Comparative Methods and Data Representation for Structured Traits, Including Temporal Sequences in Behavior, Morphology and Development". Many traits of organisms, especially in behavior, morphology, and development exhibit structured relationships with other traits. Examples of structuring include temporal sequences in behavior and development and whole-part relationships in morphology. This project develops software to apply phylogenetically informed comparative methods to traits in structured relationships. Developing these methods and their underlying representations is an important step in integrating diverse phenotypic data.